Experimental Studies of Cluster-Size Distributions During Colloidal Aggregation

This project is in the general area of analytical and surface chemistry and in the subfield of colloidal aggregation. This research continues the Principal Investigator's application of optical particle size pulse analysis to characterize the kinetics of colloidal aggregation processes and the structure of aggregates formed under different conditions. This method permits direct testing of the fundamental theories of colloid flocculation. Two model systems will be studied systematically: 1) salt-induced coagulation of colloidal polystyrene microspheres; 2) antigen-antibody agglutination reactions. Temporal evolution of the cluster-size distribution will be recorded as a function of such factors as ionic strength and pH of the electrolyte solution in order to test theories of irreversible aggregation. The particle size analyzer will be improved to enable analysis of smaller particles than currently possible. In addition, light will be collected not only at small angles but also at a range of larger scattering angles. This will enable determination not only of the mass but also the radius of gyration and hence the fractal dimensionality of the clusters. The relation of cluster structure to cluster growth and cluster-size distribution will be characterized. The aggregation of small particles to form larger structures is of major importance in such diverse areas as air and water pollution, materials processing, catalysis, medicine and biology. Both experimental and theoretical studies are necessary to advance our understanding of colloidal aggregation. Optical particle size pulse analysis enables direct measurement of the particle size distribution and temporal evolution, and direct testing of the fundamental theories of cluster growth.